EAGER: Spectral Network Alignment

Suppose one wants to understand the similarities between two, very
large, unknown networks from an application domain, e.g., brain
networks, gene expression networks, or protein networks. There are two
associated problems that are far from trivial: how to quantify
similarity, and how to detect it in a reasonable amount of time,
considering that the networks can have millions or billions of
connections. Researchers have used methods inspired by combinatorics
and network theory, but so far these methods have run into many
complexity-theoretic barriers and it is not clear whether they can
capture true functional similarities of networks.

A more recent approach is based on spectral graph theory, which is the
expertise of the investigator. In particular, the approach taken here
is an original application of graph Laplacians and quantitative
algorithms around real quadratic forms. There are numerous natural and
unexplored algorithmic and complexity-theoretic questions in this area
that the investigator will pursue. A particularly interesting aspect
of this proposal is how it is related to the graph isomorphism
problem, but deals with relaxations that potentially enable
circumventing this venerable barrier. The investigator, with his
established connections with biologists and health scientists, will
also apply his work toward more practical software for network
alignment.